Strengthening the Applied and Computational Mathematics Component

This Research Improvement in Minority Institutions (RIMI) project supports two groups that will study optimization and fast symmetric fast Fourier transform (FFT). The optimization group will identify specific problems, apply the software for unconstrained optimization to the transformed problems in order to find out which algorithms work best, develop special software for any new methods and finally construct an algorithm for the nonmetric multidimensional scaling problem and compare it with other approaches. Extensive computations will be necessary to accomplish these goals. The group will use an Alliant computer that was purchased with an earlier RIMI grant. The symmetric FFT group will continue to develop even more efficient ways for the computation of the discrete Fourier transform of periodic sequences. This particular work will examine ways to design fast symmetric FFTs that do not depend on the Cooley-Turkey FFT. This group's approach will be based on the highly efficient fast polynomial transforms that have been introduced by Nussbauner. This comprehensive applied and computational mathematics effort will significantly increase the research capability of a predominantly minority institution. The principal investigators are well trained and have reasonable publication records. Faculty and students working on this project will use the Alliant computer to further strengthen their mathematical research skills.